Proposal Processing for the Knowledge and Distributed Intelligence Initiative (KDI)

This contract to Friday Systems Services provides administrative and logistic support to the Knowledge and Distributed Intelligence Initiative for performance of proposal processing, data entry and panel support and post spanel support for approximately 650 proposals.